Computer Science and Mathematics Scholarship Program

This project is providing a total of 20 scholarships per year to students majoring in either computer science or mathematics. The scholarships are being awarded to students with demonstrated financial need and academic ability. The project is increasing the number of majors, particularly from underrepresented groups, in the indicated fields. A learning community is being used to increase the graduation and retention rates in the participating programs. The learning community is providing faculty-student mentoring, internships at local companies, guest speakers and tours of local industry. The community is also helping students to develop skills for learning outside the classroom. Through this project, the institution is also developing a close partnership with local companies.